A Vehicle for Delivering a Mechanical Engineering Systems Laboratory

The basis of this project is to improve the computing facilities available for undergraduate Math majors at East Central University. East Central University, located in rural Oklahoma, has a strong Teacher Certification program and is also ranks highly in terms of the number of Bachelor degrees granted to native Americans. The Department of Mathematics currently has very limited and antiquated computing facilities, which denies students the opportunity of an education which exposes them to tech- nology, such as that which they will subsequently encounter in industry or graduate school. This lack of exposure to computing technology also impedes students' competitiveness in seeking employment upon graduation. With updated computing equipment, Mathematics majors, and especially those in the Honours program, will be able to incorporate modern technology into their studies, thereby enriching their educational experience and better preparing them for future encounters with technological innovation.